NSF Young Investigator

9357471 Badding This NSF Young Investigator award deals with research and teaching in areas that include the use of high pressure in the synthesis and study of new and potentially useful materials such as transition metal-like alkali metals, the synthesis and chemistry of superhard materials, and the study of metallic hydrogen. ***